Hecke Algebras and Complex Reflection Groups

A complex reflection group is a finite group of transformations of a
complex vector space that is generated by reflections (i.e.,
finite-order transformations that fix some hyperplane pointwise).
Recent work by a number of people has revealed surprising parallels
between these groups and real reflection groups, or even Weyl groups:
specifically, they give rise to a number of representation theoretic
objects, such as Hecke algebras and generic degrees, even though there
is no algebraic group in the background whose representation theory is
being described. Broue and others have conjectured the existence of
mysterious, unknown objects called "spetses" as the source of these
phenomena. The aim of this project is to extend this view: one
specific goal is to construct an analogue of the Springer
correspondence for complex reflection groups. Our techniques ought to
yield uniform accounts of certain structures coming from Hecke
algebras of complex reflection groups, and perhaps point the way to
developing a general framework in which to study these groups, in the
spirit of Coxeter theory.

A square matrix is called a reflection matrix if (a) some power of it
is the identity matrix, and (b) all but one of its eigenvalues is 1.
A reflection group is a finite group of matrices in which every
element can be written as a product of reflection matrices that are
also in the group. Reflection groups of real-valued matrices, first
studied in depth by Coxeter in the 1930's, have long played a vital
role in many areas of mathematics: perhaps most importantly, the
structure and representations of a large class of Lie groups are
closely governed by certain real reflection groups (the so-called Weyl
groups). Reflection groups of complex-valued matrices, in contrast,
are much less well-studied, but recent work by a number of people has
shown that they exhibit a number of disparate and surprising parallels
with real reflection groups, or even with Weyl groups. In this
project, we propose to further develop the analogy with real
reflection groups, specifically by studying the structure of certain
related objects called Hecke algebras. In the process, we hope the
point the way to a uniform explanation for these phenomena, and
perhaps to a structure theory for the complex reflection groups
themselves.